A Cooperative U.S.-German Research Project on Computer-Aided Analysis and Design of Hybrid Systems

This award supports Dr. Bruce H. Krogh and a graduate student from Carnegie Mellon University in a collaboration with Sebastian Engell of the Department of Chemical Engineering at the University of Dortmund. The collaboration draws on recent research by the U.S. and German groups in the area of dynamic systems that have both continuous and discreet states. Together they will augment selected computer-aided modeling and simulation packages with interfaces to software tools for analysis, synthesis, and verification of hybrid systems. The new tools resulting from this project will enable U.S. and European researchers and engineers to build and exchange models of real-world hybrid systems, and to use a variety of tools for model verification, analysis, and design. Moreover, the interface to currently existing software tools will be extensible to incorporate future algorithms.